Summer Workshop in Parallel Computation

The rapidly growing interest in multiprocessors for concurrent, or parallel, computation has created a need for the training of graduate student of computer science and postdoctoral researchers in this field. There is also a need to interest outstanding undergraduate students in this emerging field. The field is so new, and developing so rapidly that many programs in computer science do not cover it adequately. The proposed workshop addresses this need. The two-week program of the Workshop will give participants an opportunity to learn about parallel computation from lectures offered by a number of experts in the field and workshop sessions in which they will use several different kinds of commercially available multiprocessors. The proposal has been submitted to help train and familiarize the research community involved in computational science with the important nuances of parallel processing. Parallel processing is recognized as a rapidly growing field of computational science which promise large increases in computational speed and computer power. This workshop will introduce and train scientists on programming techniques and difference in machine architectures of various problem-solving opportunities.